The Molecular World

The Educational Film Center, in collaboration with Dr. Roald Hoffmann, Nobel Laureate and John A. Newman, Professor of Physical Science at Cornell University, will produce THE MOLECULAR WORLD, a series of three one-hour specials for Public Television. The specials will outline this "century of synthesis," the historical contribution of chemistry to our everyday lives. They will further highlight the future impact of chemistry on new materials for transportation and communication, and ont he rational design of effective medicines. The programs respond to the need for public awareness about the molecular and chemical make-up of the natural world around us and within us. The public also needs to appreciate better the continuing role of chemistry in producing the new molecules which change our world. THE MOLECULAR WORLD is designed for a national television audience complementing the recently completed college telecourse "The World of Chemistry" and its High School adaptations. The National Science Foundation award constitutes 15% of the total cost of the project.